RUI: REVSYS: Monographing the Lampropidae (Crustacea: Cumacea)

Cumaceans are small crustaceans that live in marine sediments, commonly
encountered in marine sampling programs, fish and bird stomachs, and night
plankton samples. The density and diversity of cumaceans tends to increase
with depth and decreasing sediment grain size, although cumaceans can also
be abundant in shallow sandy sediments. Many specimens are never
identified beyond the level of the order Cumacea, due in large part to a
lack of synthesizing works and identification tools such as monographs and
databases. Of the eight recognized families of Cumacea, only one has been
monographed. The objective of this proposal it to complete a monograph and
database for the family Lampropidae. A monograph collects and synthesizes
all the available knowledge about a group of organisms and includes
identification keys, making it possible for non-specialists to identify
specimens with accuracy. DELTA is a package of programs that includes a
taxonomic database and an interactive, illustrated identification program,
which can be web-disseminated and facilitates species
identifications. Both the monograph and database will be disseminated
through a website, which will include general information about the
Cumacea, in addition to information for systematists.

As human impacts on the oceans increase, it is widely
recognized that marine bio-diversity is significantly under-recorded. This
project will increase knowledge about the diversity of marine life directly
through the description of new genera and new species. Three undergraduate
students who are future teachers will be trained in the practice of
systematics. The students will come away with an understanding of the
importance of biodiversity and recognition of how much remains unknown, as
well as experience in the process of scientific research, which will
enhance their own teaching about science in the future. In order to remain
competitive globally, the U.S. must enhance the science education of our
citizens, and improving the science education of future teachers is
expected to enhance their ability to teach science effectively.